Collaborative Research: Virtual Networking -- Enabling Innovation in Networks and Services

Proposal Number: 0439886
PI: Jonathan Turner
Institution: Washington University

Proposal Number: 0440940
PI: Scott Shenker
Institution: University of California, Berkeley

Proposal Number: 0439642
PI: Thomas E. Anderson
Institution: University of Washington, Seattle

Proposal Number: 0439842
PI: Larry Peterson
Institution: Princeton University

Title: Collaborative Research: Virtual Networking - Enabling Innovation in Networks and Services

Abstract:

The Internet is one of the great technology success stories of the twentieth century, enabling greater access to information and providing new modes of communication among people and organizations. Unfortunately, the Internet's very success is now creating obstacles to innovation in the networking technology that lies at its core. In order
to free the global communications infrastructure from stagnation, the nation must find ways to enable its continuing renewal. This planning grant is developing a case for network virtualization as a means to enable innovation in networks and services. Virtualization allows multiple logically independent virtual networks to share a common physical infrastructure or substrate. This program is developing a plan for a major new research initiative in network virtualization that includes both basic research, the development of key technology components and the creation of an experimental testbed, to establish feasibility and provide a context in which networking researchers can develop innovative new network architectures and services. The program is articulating the case for network virtualization, soliciting input from the network research community and working with the community to develop recommendations to NSF for a major initiative in this area.